Turbulent Entrainment and Detrainment in Stratified Flows

Abstact/Breidenthal Laboratory experiments are proposed to measure the entrainment and mixing characteristics of buoyant flows involving shear and buoyance reversal. Experiments will be performed in water tanks, using pH indicators in conjunction with acid-base reactions to determine optically the location and amount of mixing.